REU SITE: Research in Consumer Networking Technologies

This Research Experience for Undergraduates (REU) Site at the University of Missouri – Columbia will investigate a variety of interesting and challenging problems that involve consumer networking applications and services that are of significance to the economy and quality of life in areas such as public safety, health care, nature conservation and education. The students will participate in the faculty mentors’ on-going funded research, investigate technically challenging issues and develop viable solutions and insights. They will participate in professional development activities to prepare them for future graduate studies and a broad range of emerging computing careers. Using an already established network of recruiting venues, participants will be recruited from a broad range of educational and geographic backgrounds.

The intellectual merit of the project rests with the leadership, an experienced research group with excellent expertise and experience in the research area. The research will focus on broad topics such as software-defined networking/virtualization for resource control, resilient visual computing at the drone network edge, secure and artificial intelligence enabled mixed reality, mobile sensing and environment recognition, securing networked consumer applications, and application-aware network performance optimization. The research activities will lead to a better understanding of the multitude of efficiency, performance, reliability, scalability, and security issues and tradeoffs in consumer networking technologies and related applications. Advanced networking environments and software developed in the previous REU site programs as well as novel testbeds such as the NSF-supported AERPAW/FABRIC resources, Mizzou CAVE (mixed reality), smart device equipment, and sensor-based monitoring will be leveraged by the participating students in hands-on experiments within their research projects.